State Resolved Collision Dynamics of Highly Vibrationally Excited Polyatomics

In this Minority Research Initiation project in the Chemistry Division, Edwin Carrasquillo M. of the University of Houston will study quantum state-resolved collision dynamics involving polyatomic molecules which contain chemically significant amounts of vibrational energy. The combination of direct excitation using a single-photon overtone vibration to prepare a molecule in a specific quantum state, together with laser-induced fluorescence as a spectroscopic probe, allows the temporal evolution of a hot molecule to be monitored. Various hydrogen-containing molecules, such as HCN, DCN, HCP, and propynal, will be studied in order to extract relaxation mechanisms and identify general trends. %%% Studies of energy transfer involving very high vibrational levels are important for understanding many chemical processes, including reactions. Knowing how the internal energy of a reactant affects the reaction path or how the excess internal energy of a product is redistributed as it equilibrates with its surroundings can help in efforts to control the course of a chemical reaction. This project aims at examining the behavior of molecules with large but very precisely determined amounts of energy present in the vibrations of individual chemical bonds.